Integrated Sensing: Communication Protocols and Testbed Development for Ad-Hoc Sensor Networks

022597
Sivakumar

The convergence of micro electro-mechanical systems (MEMS) technology,
wireless communications and digital electronics have enabled the development
of low cost, low power, multi-functional sensor nodes that are small in size
and communicate un-tethered in short distances. They can perform tasks, which
traditional stand along sensors are hard to match. Although sensor networks
have some similarities with another class of wireless networks called ad-hoc
networks, they have several distinguishing characteristics that necessitate
dedicated communication protocols.

The PIs overall objective in the proposed project is to develop a system
architecture, which includes new protocol entities and interfaces. Their focus
will be on the integration of the proposed algorithms into an efficient
overall system. While they propose to develop new algorithms and protocols for
the transport and network layers, specifically, their deliverables will
include: (a) a new transport protocol called SNTP (Sensor-Nets Transport
Protocol) that is designed specifically for a sensor network environment,
and (b) a power aware and scalable routing protocol that allow an end-user
to control the sensors and reconfigure the interconnection of the sensor
network.

The PIs will evaluate their proposed protocols in a ns2 network simulator based
simulation environment, and make available for public use any protocol
simulation software. Since the ns2 simulator currently does not extensively
support the simulation of sensor network environments, they will also develop
such support and make it available for public use.